Multivariate Nonparametric Methodology Studies

The demands on statistical methodology have grown relentlessly
as new technologies for data collection appear. Many of
these datasets are unusual by statistical standards:
they are massive; they are highly nonlinear; they are
contaminated; they contain data which are in fact functions;
or the data come from a mechanism which is only partially known.
The tasks of estimation, testing, functional testing, pattern
discovery, feature extraction, visualization, and comparison
require the statistician look at each problem anew.
Nonparametric methodology, which has been widely used in one
and two dimensions, is also appropriate in these higher dimensions.
Particular emphasis will be given to multivariate regression and
density estimation problems, and closely related applications such
as clustering, mixture estimation, pattern recognition, robust
estimation, and dimension reduction. The statistician's view of
the scientific method is a continuously improving process of model
building, data collection, estimation, criticism, and refinement.
However, many practicing statisticians are stymied by an inability
to repair poorly fitting models. Of particular interest in this
research are methods which provide critical diagnostic information
as part of the model estimation task. A focus of this research is
a relatively new minimum-distance data-based parametric estimation
algorithm, which has been investigated for its robustness properties.
The algorithm can be applied to mixture models and spline fitting.
An incomplete density model may be fitted, a highly unusual
capability that will be explored fully in the context of regression,
image processing, clustering, outlier detection, and density
estimation. Other novel potential applications include adaptive
wavelet thresholding, solution of the mixture of regression problems,
and application to models which apply to only a subset of the data.
capability that will be explored fully in the context of regression, image
processing, clustering, outlier detection, and density estimation. Other
novel potential applications include adaptive wavelet thresholding,
solution of the mixture of regression problems, and application to
models which apply to only a subset of the data.

Research in data analysis and statistical modeling provides
intellectual challenges with deep applications in almost every
field of natural and social sciences and engineering. The field of
nonparametric statistics has made a significant contribution to
the success of science with algorithms that are hidden but critical
even in the inner workings of cell phones. At a recent National
Research Council workshop, numerous scientists identified
critical statistical needs in their work with massive data sets:
new dimension reduction algorithms, specialized visualization tools
for exploring massive data, better clustering algorithms, and
techniques for handling nonstationary data. Results from this proposed
research directly impact three of these four critical opportunities.
This program represents a comprehensive and long-term attack
on a host of important data analytic problems in multivariate estimation.
Graduate training is significant component of this project. The results
will be of long-term theoretical interest and will provide short-term
solutions to real-world problems.